Complex Analysis and Representation Theory

Project Abstract
Complex Analysis and Representation Theory
Leticia Barchini and Roger Zierau

In this project we will study irreducible unitary representations of
semisimple Lie groups. We propose to give realizations of irreducible
representations as holomorphic sections on a Stein
extension of the Riemannian symmetric space G/K. The advantage of
this approach is that it gives realizations of irreducible representations
in a purely holomorphic setting, thus allowing methods from complex
analysis such as Hardy space techniques. Let us call such a Stein extension
M. The important properties M should possess are: (a) M is a
Stein domain in a complexification of G/K, (b) M depends only on the
group G, and (c) A large number of representations should occur as spaces
of holomorphic sections on M. This project has two separate parts.
First we will realize irreducible unitary representations using Szego
kernels. The representations occur as spaces of
holomorphic functions on M and the boundary values and inner product will
be described in an explicit and natural way. We will also determine the
proper space M. If G is of hermitian type then G/KxG/K is the correct
choice for M . Otherwise there are some candidates for M, namely a
parameter space of maximal compact subvarieties of an appropriate flag domain
and the maximal domain in the complexification of G/K for which the Szego
kernel extends holomorphically. These two candidates may turn out to be
essentially the same (as in the known cases). We will need a simple
explicit description of M and its boundary.
Our second project is to study the indefinite quantization of elliptic
coadjoint orbits. The goal is to explicitly give the unitary structure
on the representations occurring in the Dolbeault cohomology of an elliptic
coadjoint
orbit. This is continuation of previous collaborations.

Symmetries play an fundamental role in mathematics and physics. Semisimple
Lie groups provide a technical tool for studying such symmetries. For
example a quantum mechanical system is, in part, a Hilbert space
on which the group of symmetries acts. This is a representation of
the group. Other representations occur very naturally in many areas
of pure mathematics, such as number theory, classical analysis and
probability. A fundamental problem is to classify all irreducible unitary
representations. Along with this classification is the problem of constructing
the representations. Our project is concerned with constructing
unitary representations in a very natural way. Such an understanding
of representations will lead to more applications of the theory to
concrete physical problems as well as other areas of pure math.